Low-frequency photometric variability in Mira-type stars: possible signatures of surface asymmetries

This project will analyze brightness data for luminous, cool red giants of the Mira type. These stars show complicated patterns of low-frequency variability, and have been the target of long-term study by the professional and amateur community. Dr. Templeton will assemble archival and ongoing observations of several hundred Mira stars to explore empirically the frequencies of pulsation and whether these correlate with other properties of the stars such as temperature or luminosity.

The project is expected to contribute to public outreach through collaborations between amateur and professional astronomers. The data for this project will be made available to the community, especially to provide input to future numerical modeling of Mira pulsations.